Studies in Arctic Affairs (Works in Translation)

The University Press of New England is planning to produce a new publications series "Studies in Arctic Affairs," starting in 1991. A distinctive feature of the series will be publication of translations of significant and broadly appealing works from contemporary Soviet literature. This grant provides support to assist in the inaugural activities of translating several major Soviet books. This support is consistent with the NSF responsibilities to assist in the dissemination of Arctic knowledge and its leadership role under the Arctic Research and Planning Act of 1984.